NSF-CONACyT Collaborative Research on Sensor-based Robotics

This project ((in collaboration with Dr. Ricardo Oropeza, ITSEM CEM, Mexico) will investigate the problem of sensor-based exploration of unknown environments by autonomous robots. The work will include autonomous construction of a representation of the environment (the mapping problem), annotating the map with landmarks for robot localization, and the use of the constructed map for navigation.